Mathematical Sciences: Scientific Computing Research Environments for the Mathematical Sciences

The Department of Mathematics at Michigan State University will provide support for a Programmer Analyst Systems Operator. This will be in support of research in mathematical sciences. 1. Topology of Real Algebraic Sets (Selman Akbulut); 2. Numerical Study of Superconductivity Models (Qiang Du); 3. The Dimension of Harmonic Measure, Length of Level Curves of Green's Functions (Alexander L. Volberg).